STAR TAP2: Science, Technology and Research Transit Access Point

The Science, Technology and Research Transit Access Point (STAR TAP) was funded by NSF ANI-9712283 for the period May 1,1997-April 30, 2000. The current award funds a three-year continuation of the pivotal infrastructure services provided by STAR TAP. STAR TAP services will be expanded in depth to take account of dynamic changes that have taken place in high performance networking since the inception of the Next Generation Internet (NGI) Program as well as related domestic (e.g., Internet 2) and foreign (e.g., Canada, Japan, Singapore, Netherlands, Israel, Nordic countries and others to follow) initiatives. The nature of the effort, however, is substantially unchanged, namely to support global collaborations on progressing high performance networking and advanced networked applications by providing persistent, reliable interconnections between domestic and international partner advanced academic networks.